PYI: Graphical interface alternatives to window systems.

This is the first year base and matching amount funding of a five-year PYI continuing award. The PI works on design of interfaces for collaborative environments. The current research is on designs that allow one to see the layout of many other collaborator's surfaces at a glance. This research aims to provide a recursive system of indefinitely zoomable magnifying glasses through which one can read, write, or create cross- references on an indefinitely enlargeable (zoomable) surface. A number of algorithms for dynamically displaying such information in 'real time' on unenhanced bit-mapped workstations have already been developed by the author. The research will continue by defining and implementing the basic collection of functions in the interactive zoomable window system. Then, the system will be extended across a network, thereby making available a shared information space which will allow an arbitrary number of users to work in a common virtual environment, each possibly enjoying a different view of this environment. The researcher will also build applications, including multiscale graphical "yellow pages" and shared spreadsheet systems, to test the real benefit of the implemented system.